Data Acquisition Systems for Civil Engineering

Six laboratory courses have been selected for improvement with the addition of microcomputer-based data acquisition systems. These courses cover the areas of hydraulics, soils and foundations, construction materials, structural behavior measurements, and construction planning. The objective of the addition of these computers to these courses is to provide the students the opportunity to gain first-hand experience with computers as instrument controllers and data collectors. All of these laboratory courses will use the same basic hardware and software. A microcomputer will be located in the laboratory as the host for the data acquisition system. Data from the micro will be sent via a Ethernet network to a VAX11/750 which will serve as a central file server for all of the laboratories. During the laboratory session the students will control the experiments with the micros. At a later time the students will use a remote terminal to the VAX to retrieve their data, do the analysis, and prepare the appropriate graphs and figures for the lab report. Using this centralized procedure, the students will have access to a great deal more data than is now presently available with conventional systems of analog measurements recorded during the actual laboratory session. Current laboratory course content is improved by including both the statistical analysis of experimental data as well as the analysis of the transient behavior of engineering materials.